Dissertation Symposia on Chemical Oceanography; Hawaii, 2002

ABSTRACT

OCE-0224374

Under this award, the American Institute of Biological Sciences will continue its management of the Dissertation Symposia on Chemical Oceanography (DISCO), which it has run under joint NSF/ONR/NOAA sponsorship since 1978. From the time of its inception twenty-four years ago, the objectives of DISCO have been (1) to bring together in a common forum recent doctoral recipients in chemical oceanography to discuss their cutting-edge dissertation research and (2) to encourage the formation of long-term scientific collaborative relationships early in their professional lives. DISCO has been a resounding success -- so much so that the enthusiastic publicity generated in the academic community led to DISCO becoming the de facto gold standard that led to the organization of other DISCO-like dissertation symposia in other branches of the earth sciences.